CSR-AES: Collaborative Research: Behavior-Based Speculative Parallelization and Optimization on Desktop Multiprocessors

The on-going shift in processor technology to favor multicore
multiprocessors is opening new opportunities for software speculation,
where program code is speculatively executed to improve speed at the
cost of having to monitor for errors and the risk of having to
re-execute code when an error happens.

This project develops a new, behavior-based approach, which allows a
user or a profiling tool to parallelize or optimize a program based on
partial information about the program code and the input. It mainly
develops two programming techniques: Behavior-oriented parallelization
(BOP), which speculatively executes possibly parallel regions, and
Fast track, which uses software speculation to support the use of
unsafely optimized code.

The exponential increase in microprocessor performance over the past
30 years has had incalculable impact on science, commerce, government,
and quality of life. Continuing this revolution through the coming
decade will depend on a large degree of processor-level parallelism.
Behavior-based oftware speculation promises to improve the performance
of existing, sequential software and of new software that reuses an
existing code base. It simplifies parallelization and should thus
improve the productivity of future software development. The outcome
of this proposal will be a suite of techniques for general-purpose
software, and new tools that will be transitioned to industrial
partners wherever possible, and will be used in both undergraduate and
graduate courses.